SGER: Denali Earthquake

Denali Earthquake SGER Budget UAF

The Geophysical Institute, University of Alaska Fairbanks carried out a vigorous and immediate response to the 3 November 2002, MW 7.9, Denali fault earthquake. In the weeks after the earthquake, UAF personnel installed 28 temporary seismic stations and surveyed 58 GPS survey points across central and southern Alaska. Three UNAVCO engineers installed 10 continuous GPS sites near the rupture and UAF currently has receivers running quasi-continuously at 3 additional survey points. This proposal requests funding for the immediate earthquake response, for which it is impossible to wait for normal NSF deadlines and award dates. In future studies, GPS displacements will be used to determine a coseismic slip model, and GPS data from the continuous and other sites will provide the critical initial data for future studies of postseismic deformation. Data from the temporary seismic array will be critical for aftershock and other seismic studies.